Acquisition of Meteorological Observing Equipment

This award to the University of Lowell is made in response to a proposal submitted to the NSF's Instrumentation and Laboratory Improvement Program, a program whose goal is to extend support for undergraduate instructional instrumentation. The award will provide one-half of the funds needed to acquire surface and balloon observational equipment for real-time acquisition and processing of meteorological data. The University of Lowell is committed to matching the NSF contribution for this equipment. The instrumentation will be used to enhance the undergraduate meteorology curriculum and to provide students with the opportunity to acquire and process meteorological data.